Presidential Young Investigator Award

This award provides support to Dr. Christina Romer under the National Science Foundation's Presidential Young Investigator Awards Program. The objectives of this program are to provide research support to the Nation's most outstanding and promising young science and engineering faculty. The awards are intended to improve the capability of U.S. academic institutions to respond to the demand for highly qualified science and engineering personnel for academic and industrial research and teaching. This award will allow the investigator to pursue her research which systematically links modern macroeconomics with economic history. One of her major research accomplishments has been to challenge the data used to analyze prewar business cycles. In the 1960s and 1970s, economists tended to view prewar estimates of such indicators as gross national product or the unemployment rate as comparable with modern estimates. They then used these data to argue that business cycles had gotten much less severe between the early 20th century and the more recent era. Dr. Romer's work directly contradicted this widely accepted finding by showing that the prewar estimates of most major indicators of economic health were constructed in a way that accentuated prewar cycles. When these biases were removed, the new prewar estimates showed that cycles before and after the Great Depression were of roughly equal severity. Thus, by measuring output in a consistent way, she found that much of the pre- and post-war difference was the result of a better data base for measurement in the latter period. This finding is important for it overthrows the key observation used by both monetary economists, e.g., Nobel Laureate Milton Friedman, and Keynesian economists, e.g., Nobel Laureates James Tobin and Franco Modigliani, as being strongly supportive of their respective theories. Now, she proposes another challenge, this time to the widely held belief about the macroeconomy that movements in money cause movements in real output. This research involves investigating whether there is in fact an identifiable statistical relationship between particularly dramatic movements in the supply of money in the prewar era and the behavior of the real economy and the close examination of the historical record to see if the large movements of money associated with financial panics should be viewed as exogenous events or as endogenous movements triggered by the early states of a depression. Dr. Romer has stimulated a new interest in the evolution of the American economy and she will continue to be a major contributor to reinterpretations of it. While evidence from the past has often been used to illustrate or illuminate, Dr. Romer's research is differentiated by the depth of the historical analysis and its use in posing relevant hypotheses that have the power to reshape macroeconomic theory.